Establishment of an Instrumentation Calibration Laboratory

The aim of this project is to create an instrumentation calibration curriculum strand for engineering technology, technician and science students. The curriculum focuses on a dedicated laboratory consisting of three independent but integratable modules providing hands-on experience with equipment measuring: (1) voltage, current, resistance, and power; (2) fluid flow; and (3) pressure, temperature, and volume.The resultant curriculum consists of ten modified or new courses, affecting 16 engineering technology and science faculty and offered to students in seven different majors and directly and indirectly to area high school students and college students statewide. Two years of development and evaluation, will produce a replicable model for how two-year colleges can adequately produce the type of broadly-educated technician needed to lead in instrumentation calibration design and operation in high-performance industries.